CSUEB Noyce Scholars Program

Phase I Noyce Scholarships are being used to attract academically successful community college transfers, senior mathematics and science majors and STEM professionals to become highly effective teachers in urban school districts. The Noyce Scholarships recruit and support four different types of students including: 1) students in their third and fourth year of the CSUEB Bachelors Plus Early Pathway integrated credential and math or science degree; 2) students transferring from community colleges, especially those who have served as successful Teaching Assistants in local high schools through the CSUEB MSTI (Math and Science Teacher Initiative); 3) current math and science majors; and, 4) past-baccalaureate STEM professionals who are ready for the credential program, particularly paraprofessionals in the Alameda County Office of Education program. Particular effort is being given to recruit diverse students utilizing current community partnerships such as the Oakland African American Chamber of Commerce and the annual Latino Education Summit. The program is supporting cohorts of seven undergraduates and five STEM professionals per year with three cohorts of undergraduates and four cohorts of STEM professionals for a total of 41 students at the end of the program. The undergraduates are supported for two years and the STEM professionals for only their credential year. The College of Science and the College of Education and Allied Studies at California State University East Bay jointly offer these programs to enhance science and math education in K-12 schools in Alameda and Contra Costa Counties and to increase the number of science and math students who obtain a teaching credential.